Integrating Science Concepts

9355532 Baxter Integrating Science Concepts enhances the scientific literacy and teaching of K- 8 teachers in Eugene School District 4J. Teachers develop skills in creating and presenting constructivist, activity-based instruction that integrates science with other disciplines. The first year 16 master teachers participate in a 15 day summer workshop with project staff, Willamette Science and Technology Center and Oregon State University experts in pedagogy, and University of Oregon scientists. In the following years these master teachers and project staff work with an additional 72 mentor teachers to develop the skills and knowledge to teach peers. Workshop activities include hands-on scientific investigations focusing on particular science concepts, critical analysis of exemplary concept-based science curricula, and participants' design of concept-based science units to use in classrooms. Regularly scheduled follow-up sessions support teachers in implementing these units.